Workshop to Determine Research Needs for Masonry; Clemson, South Carolina; Spring 1988.

This project is to conduct a workshop on masonry structures to determine the need for centers of excellence in masonry and to establish a research agenda.//